Geometry, Analysis and General Relativity

Abstract

Award: DMS-0707306
Principal Investigator: Lars Andersson

The principal investigator is proposing to do research on
problems relevant to Lorentzian Geometry, General Relativity and
Riemannian Geometry. The main focus of his research, the Cauchy
problem for the Einstein equations, interacts deeply with each of
these areas. Among the topics considered in this proposal are
global stability of cosmological models, the theory of marginally
trapped surfaces and dynamical horizons, and the structure of
cosmological singularities. Andersson will attempt to prove that
in the case of spacetime dimension at least eleven, there are
families of vacuum cosmological models which are globally stable,
with quiescent singularity. In the 3+1 dimensional case, similar
results are expected to hold for the Einstein-scalar field
equations. Andersson and collaborators have recently been able
to apply techniques developed in the theory of minimal surfaces
to the case of stable marginally trapped surfaces, which play the
role of apparent horizons in general relativity. Andersson plans
to pursue the connection between marginal surfaces and minimal
surfaces in his future research, and to apply these techniques
also to dynamical horizons. In addition to the above topics,
Andersson proposes a program of research using analytic and
numerical techniques, directed towards investigating the
asymptotic behavior of general inhomogenous cosmologies near the
singularity.

The Einstein equations describe the geometry of spacetime, which
in turn determines the motion of bodies (planets, stars,
galaxies) in space, as well as the dynamics of fields and
particles via their respective field theories. The geometric view
of the universe provided by the Einstein equations has led to
some of the most fundamental and paradoxical features of our
picture of the universe, including the initial spacetime
singularity or Big Bang and black holes. The mathematical study
of spacetimes in extreme conditions such as near the Big Bang
singularity or near the singularity in black holes has led to a
far reaching conjecture called ``Cosmic Censorship'', which
implies that phenomena which violate the intuitive notions of
causality must be hidden (censored) from observers. In this
project, problems related to cosmic censorship are studied using
a combination of computer based and analytical techniques, with a
particular focus on the evolution of geometry from initial
conditions.